Support of Travel to 30th International Geological Congress, Beijing China, August 4-14, 1996

Spilhaus 9627219 The objective of this project is to make possible the participation of approximately 7 researchers, from the United States in the International Geological Congress (IGC). The 30th IGC will take place August 4-14, 1996 in Beijing, China. This venue will highlight the demands of massive populations and evolving economies on the resources of the earth and the environment. It will also offer unparalleled opportunities for U.S. scientists to learn about the unique geology of China and the progress made by Chinese geoscientists. The scientific contacts and new perspectives that U.S. scientists will find at the technical sessions and field trips of the Congress will be invaluable for advancing understanding of the dynamic earth system.